Virtual Markets in the Wireless Communication & Computation Grid

0227879
McKnight

This award is to the Tufts University to support the activity described below for 24 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 02060). The partners include the Tufts University (Lead Institution), Boston University, Massachusetts Institute of Technology, Northeastern University, ETH Zurich, Mystic Valley Development Commission, Btexact Technologies, Cisco Systems, Dialout.net, Fractal Antenna, NimbleMicro, The Telmarc Group LLC.
The proposed goals are to create a collaborative pool of Massachusetts research universities in the wireless communication sector, to improve education and integrating wireless communication technology into the school system, to investigate the tremendous value that wireless grid networks offer to increase access to wireless communication, and to develop new economic sectors utilizing these ubiquitous networks to access grid networks. Wireless communication and computation multi-provider and multi service grid services for usability and network, power, spectrum, and economic efficiency are being designed. The critical characteristics and features of the service layers that may be required for both virtual and real organizations to do business across a wireless communications and computation grid will be identified. The virtual organizations model will be extended to include the concept of a virtual market across a wireless communications and computation grid.

A wireless communication and computation grid services platform, designed for usability as well as network, power, spectrum, and economic efficiency, will increase access and engender productivity gains that crosses multiple market sectors. This model will transform the way that the national research enterprise innovates and help to create collaborative networks that strengthen local and regional economies. Communication and computation networks are a necessary part of the infrastructure for economic well-being and growth.